Coordination and Technical Assistance for "EPA/ETI/NSF Program Proposal Review Process"(CPO-9596088)

; R o o t E n t r y F /F C o m p O b j b W o r d D o c u m e n t O b j e c t P o o l kA kA ! " # $ % & ' ( ) * + , - . / 0 1 2 3 4 5 6 7 8 9 : F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 ; e = e t t j j j j j j j M 1 ! / ~ T @ M j M j j j j ~ j j j j D ABSTRACT 9522140 LINSKY Coordination and Technical Assistance for EPA/ETI/NSF Program Proposal Review Process . S u m m a r y I n f o r m a t i o n ( Oh +' 0 $ H l D h R:\WWUSER\TEMPLATE\NORMAL.DOT ABSTRACT Saundra E. Woodard Saundra E. Woodard @ =1' @ @ =1' @ F # Microsoft Word 6.0 2 ; s t c t !K !K !K !K !K !K K @ Normal a " A@ " Default Paragraph Font t t t t D Saundra E. Woodard B:\LINSKY.DOC Saundra E. Woodard B:\LINSKY.ABS @HP LaserJet IIP Plus LPT1: HPPCL HP LaserJet IIP Plus D L g , , X P = : d HP LaserJet IIP Plus D L g , , X P = : d 1 Times New Roman Symbol & Arial " h @z e@z e ! @ ABSTRACT Saundra E. Woodard Saundra E. Woodard ; ;